An Experimental Investigation of the Ricardian Proposition

In macroeconomics, there are two primary intellectual benchmarks used to analyze the effects of imposing taxes versus running a bond financed deficit to support a given level of government expenditure. The Ricardian proposition is that economic agents view current bond financed deficits as future tax liabilities and hold bonds in anticipation of these future taxes. In this case the demand for government bonds always matches government borrowing, so the way the government deficit is financed does not matter, i.e., has no real effects. The other position, typically associated with Keynes, holds that deficit financed tax cuts raise disposable income. As a result, deficits lead to high real interest rates, and crowd out private capital formation. The purpose of this ROW planning grant is to plan and conduct laboratory experiments to test the assumptions underlying the Ricardian proposition. Specifically, the investigator will determine which of three existing theoretical constructs to use in her analysis of the Ricardian proposition: an overlapping generations model, an asset pricing model, or a game theoretic model. She will design experiments to test the Ricardian proposition and conduct four pilot experiments. This project could make a significant contribution to the debate about the economic effects of government deficits. The theoretical and empirical problems encountered in past research suggest that the type of controlled laboratory experiments undertaken in this project should provide very useful results.